Physics and Applications of Quantum Nanophotonic Systems

The project is aimed at developing new ways to store, process, and transmit information using the laws of quantum mechanics, such as superposition and entanglement, with a focus on building integrated quantum systems that link many quantum devices together. Arrays of individual atoms and atom-like defects in diamond will serve as the building blocks of such quantum networks, allowing information to be shared using single particles of light. These advances are expected to enable new types of powerful computers and sensors that surpass today’s technologies.This work will advance the frontier of quantum information science, a current NSF and national priority research area, improve long-term economic competitiveness, and contribute to national security, in particular through the training of students and early‑career researchers and close collaborations with industry.

The project is based on several major advances from prior years of this research program. These include the development of programmable quantum systems built from large arrays of individually trapped atoms, the realization of efficient quantum optical interfaces for trapped atom arrays and atom-like color centers in integrated diamond nanophotonic platforms, and demonstrations of quantum networking between remote memory nodes with applications to blind quantum computation and non-local interferometry. Building upon these advances, the work will focus on realizing multiplexed, parallel cavity quantum electrodynamics for atom arrays, developing hybrid atomic–solid-state entangled systems and quantum networks, and creating, controlling, and studying large-scale entangled states in these systems. A key emphasis will be the realization of scalable, fault-tolerant architectures for quantum networking, including techniques for quantum communication over lossy optical channels and investigations of novel applications of quantum networks. The program will also explore new directions such as fault-tolerant quantum networking with logical qubits, deep‑circuit blind quantum computing, and sensing and imaging enhanced by quantum processing. Theoretical research will focus on the quantum dynamics of strongly interacting photons and atoms, with emphasis on using coherent and dissipative mechanisms, together with quantum error correction techniques, to control quantum many-body states and to identify new routes to quantum advantage.